Timing of Deformation in the Early Mesozoic Back-Arc Basin of the Western U.S. Cordillera: Luning-Fencemaker Fold and Thrust Belt

; R o o t E n t r y F L C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l y y 4 @ ( ! " # $ % & ' ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e o o j j j j j j j Q 1 3 T 5 Q j Q j j j j ~ j j j j > 9526129 Wright Mesozoic arc-related shortening is a widespread feature in the western U.S. Cordillera, Jurassic shortening is most prominent within Mesozoic arc assemblages of the westernmost Cordillera, whereas Cretaceous shortening is most prominent in the back-arc region to the east. Recent work has suggested that the change is a response to changing parameters of subduction (geometry and rate) along the active plate margin. However, the Jurassic and Cretaceous episodes are not completely separated spatially, and overlap particularly in the western back-arc region. This project involves age dating of the various deformation events in the Luning-Fencemaker fold and thrust belt. Results should clarify the timing of the overlapping deformations and allow a more complete picture of how changing subduction parameters affects spatial distribution of deformation. Oh +' 0 $ H l D h R:\WWUSER\TE MPLATE\NORMAL.DOT S u m m a r y I n f o r m a t i o n ( 9526129 Felicia Smith Felicia Smith @ k @ @ k @ Microsoft Word 6.0 1 ; o o ! ! ! K @ Normal a " A@ " Default Paragraph Font o o o o > Felicia Smith-\\CLM12\EARTESHR\1995SEPT\ABSTRACT\WRIGHT.TXT @HP LaserJet IIID LPT3: hppcl5a HP LaserJet IIID 8D R HP LaserJet IIID 8D R n n n n 1 Times New Roman Symbol & Arial " h m Em E $ 5 9526129 Felicia Smith Felicia Smith ; ;